CAREER: QoS Architecture for General Purpose Network Computing.

9876117

CAREER: Compiler Optimizations for Instruction Bandwidth

Wilson C. Hsieh

This project reexamines how compiler optimization affects one of the
bottlenecks in commercial applications: the cost of fetching
instructions. Standard compiler optimizations trade instruction
bandwidth for faster instruction sequences, which works well for
applications that have good instruction locality. Unfortunately,
recent studies have shown that instruction bandwidth is a
performance-limiting factor in many commercial applications, such as
databases, circuit simulators, and multimedia programs. In addition,
technology trends in processor architectures will also increase
applications' demands for instruction bandwidth. The proposed
research will explore several solutions to these problems. First, two
new compiler optimizations to improve utilization of the instruction
cache, instruction cache scheduling and code factoring, will be
investigated. Trace analysis of commercial applications will be used
to quantify their benefits. Second, traditional compiler
optimizations will be reexamined and redesigned as necessary, with the
goal of making them sensitive to instruction cache utilization.
Finally, architectural changes to support explicit cooperation between
the compiler and processor to make more efficient use of the
instruction cache will be explored. This research will provide a
better understanding of how compilers should optimize large,
commercial applications, which is a field that has remained relatively
unexamined in the research community.